CAREER: Control-Theoretic Techniques and Thermal/Power Modeling for Dynamically Managing Temperature and Power in Microprocessors

The goal of this research is to use control-theoretic techniques to develop new processor-architecture mechanisms for dynamically adaptable control of power and temperature. To accurately evaluate
the effectiveness of these new mechanisms, this project will also develop more detailed models for localized temperatures within a processor and for leakage current within on-chip, memory-like structures. These models will be constructed for computationally efficient use in cycle-accurate power/performance processor simulation.